Preparing K-12 Teachers to Teach Physics and Physical Science by Inquiry

This five-year Teacher Enhancement project will create Professional Development Materials for teachers of physical science and physics with an emphasis on the K-8 grade levels. It is envisioned that professionals who deliver physical science/physics workshops for K-8 teachers will use the materials in short courses and workshops. The materials will be developed and piloted in summer institutes at the University of Washington and in other venues nationwide, including at professional meetings. Both print and computer-based materials will be guided by discipline-based physics education research conducted by the Physics Education Group at the University of Washington.